Travel Grant for 2009 Chicago Summer School/Workshop on Computational Learning

This award provides support to students and other young researchers for travel and accomodation to the 2009 Chicago Learning School/Workshop on Theory and Practice of Computational Machine Learning to be held in Chicago, June 1-11, 2009. Tutorial presentations of the Summer School are being recorded and are being made available over the Web. The workshop and summer school provide a forum on geometry and high-dimensional inference in computational learning, and will be effective in bringing these subjects to the attention of a broad scientific community interested in problems of machine learning and inference.